Mathematical Sciences: A Mathematical Computing Laboratory

The Department of Mathematics and Computer Science at the University of Kansas will purchase network display stations and printers which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects in both computer science and mathematics, including in particular: 1. Numerical Methods for Smooth Factorization and Condition Estimation 2. Random Walks on Infinite Graphs 3. Parallel Methods in Multibody Dynamics 4. Planar Curves Associated with Reinhard Domains